ITR: A Distributed Simulation Infrastructure for a K-12 Inquiry Environment

EIA-0082791
Gottschalk, Thomas
California Institute of Technology

ITR: A Distributed Simulation Infrastructure for a K-12 Inquiry Environment

This research involves planning the construction of a scaleable,
persistent, interactive event simulation framework for supporting
knowledge-building curricula within K-12 education. The proposed system
uses advanced simulation and information technology methods to create an
inquiry environment, fostering cooperative interactions and knowledge
co-creation while students work together to solve curriculum-based problems
and challenges. The technical basis of such an inquiry environment is a
metacomputing system combining distributed discrete event simulations,
information and operational databases, graphical control interfaces, and
visualization. While much of the system can be built from familiar pieces,
the focus on education provides a number of interesting opportunities for
new research in computing and metacomputing strategies.

The general area of user-directed simulations is viewed as a particular
area in which High Performance Computing (HPC) can become a true enabling
technology for substantive educational reform. The proposed work will plan
the exploration, development, and extension of HPC technologies for K-12
education. This work relies on strong partnerships in cognitive science
and education to ensure that the technology features and capabilities are
matched to objectives within progressive models of knowledge and learning.
The K-12 simulation framework that could result from this work may be
regarded as a first step in the larger task of matching HPC capabilities to
contemporary cognitive science and educational research, enabling
substantive advances in learning.